NSF Young Investigator

9357812 Jessup I will study serial and parallel algorithms for problems in matrix algebra, concentrating on the aspects of matrix theory, the algorithm characteristics, and the implementation details that underlie accuracy and good performance.